RUI: Late Cenozoic Regional Deformation in Southwestern Montana: Evidence from a Neogene Paleovalley

Surface topography in principle should be perturbed by the passage of a hot spot plume because of the heating and cooling of the lithosphere during passage. However, geologic record of such topographic response is very sparse. This project will investigate sediments of Neogene age in southwestern Montana that were deposited in a paleovalley during the possible passage of the Yellowstone hot spot. The work will involve testing for drainage reversals, to attempt to date the deposits and to determine source of the sediments. Results will provide unusual insight into topographic changes that may have occurred during the passage of the Yellowstone hot spot across Montana.